NStars: Model Atmospheres and Spectral Analyses of Near-by T/L/M Dwarfs

AST-0086246
Hauschildt, Peter
"NStars: Model Atmospheres and Spectral Analyses of Nearby T/L/M Dwarfs"

Dr. Hauschildt is working on a series of projects designed to better understand the structure of cool stellar and 'brown dwarf' atmospheres. Many such objects are being discovered in the solar neighborhood. An existing model stellar atmosphere code PHOENIX is being improved to compute the emitted spectra of very cool atmospheres. The project is focussed on several key areas: (1) incorporation of molecular processes into the existing code; (2) treatment of the effects of companion star illumination on cool atmospheres; (3) the effects of grain condensation and cloud formation; (4) creation of a grid of predicted emergent fluxes for cool stellar and sub-stellar atmospheres; and (5) direct comparison of the computed spectra with observed spectra of M-, L-, and T-dwarf stars and brown dwarfs.
Funding for this project was provided by the NSF Stellar Astronomy & Astrophysics (AST/SAA) program through the joint NSF/NASA "Nearby Stars (NStars)" initiative, and the NSF Mathematical & Physical Sciences Directorate Office of Multidisciplinary Activities (MPS/OMA).
***